Instrumentation for Global Time-Series Photometry

With the possible exception of the Sun, pulsating white dwarfs show the greatest potential for probing the interior structures of stars by experimental means. A rich variety of vibrating waves, visible at the surface by their change in the star's luminosity, are excited in these stars that interfere with one another throughout the star's interior. The pattern of interferences can be used to infer the amount of material each wave travels through, and hence the distribution of material through the star can ultimately be determined. These principles, similar to those used for decades by seismologists on the Earth, are now being applied to distant stars for the first time. The white dwarf stars are the best candidates not only because they exhibit so many vibrations but because their periods are short enough that many wave cycles can be followed by observing the stars' light variations. The Principal Investigator has spent most of his research career designing and building photometric instrumentation to make accurate light measurements. In a previous NSF award, the PI and his collaborators found that a prototype three-channel photometer they had constructed (one channel for the program star, one for a constant "standard", and one for a starless "sky") increases the amount of time during a night that an astronomer can spent actually collecting data. The new award will permit the PI to construct two portable duplicates of this prototype. These instruments will be transported by his colleagues to observing sites around the world. As part of an "observing campaign", target stars will then be observed in tandem by each of these observers as the Earth rotates. Following this campaign the data will be combined and a continuous several day-long string produced that is necessary for the analysis of interior properties of white dwarf stars.